Influence of Nonstationarity Characteristics of Earthquake Ground Motions on Inelastic Structural Response

The objective of this RIA project is to determine the effects of frequency nonstationarity in the earthquake ground motions on the inelastic response and related damage of structures. A new, versatile stochastic model formulated in both discrete-time and continuous-time will be developed to represent the desired features of the ground motion. System identification techniques will be developed to calibrate the model against real earthquake records. Nonlinear random vibration method will be used to gain insights into the effects of the ground motion nonstationarity on linear and nonlinear structural response. The models of inelastic action will be considered to represent the realistic smooth hysteretic behavior with progressive deterioration. The research undertaken will provide improved understanding of earthquake-induced damage in structures and the way it is influenced by various ground motion parameters. It will also help assess effects and relative importance of the various excitation and system parameters on the statistics of structural response and damage.